HBCU-Excellence in Research: Urban Atmospheric Measurements and City-Scale Radiative Effects

Urban atmospheric conditions can vary substantially over time and across relatively small geographic areas, yet many current estimates rely on measurements and analyses conducted at broader spatial scales. This project will collect observations at urban and nearby rural locations to examine these variations and develop an approach to estimate radiative forcing at the city-scale. Measurements of carbon dioxide, black carbon, carbon monoxide, solar radiation, and airborne particles will improve understanding of local atmospheric conditions and provide data and methods that can support atmospheric model evaluation. Undergraduate and graduate students will gain hands-on experience in environmental measurements, data analysis, and atmospheric modeling, supporting workforce development in STEM.

At the urban site, a radiometer will measure total, diffuse, and direct irradiance at six wavelengths, while a separate multisensor instrument will monitor black carbon, carbon monoxide and carbon dioxide concentrations. Mobile measurements of black carbon and particle sizes will be conducted at the urban and rural sites. Satellite imagery and radiative-transfer models will be used to retrieve aerosol optical and microphysical properties, including single-scattering albedo and the asymmetry parameter, and to estimate the seasonal radiative effects of carbon dioxide and aerosols at the city-scale. The project will evaluate a new approach for estimating city-scale radiative-forcing and improve the characterization of aerosol properties used in atmospheric models.